Thermal Sciences: Emerging Technologies and Critical Phenomena Workshop

The rapid progress of advancements in the discipline of heat transfer and the importance of past accomplishments have heightened expectations from this discipline. Yet many of the most important areas for thermal science research still lie ahead. With expectations high and the potential for impact significant, it is imperative that thermal science practitioners and researchers plan the future path and needed milestones for this discipline. The impact on future technology and understanding of important phenomena need to be critically evaluated and the significant issues delineated. Basic understanding and technological impact are key. This project is a combined program/workshop to assess the role of the thermal sciences related to emerging technologies and to identify critical phenomena which need further research. The Program is directed at the development of a strategic plan aimed at enhancing the economic competitiveness of the United States in the world marketplace and at ensuring that appropriate fundamental research is carried out in the thermal sciences.